Mathematical Sciences: Analysis of Models for Microstructure

9404561 Brandon The principal investigator plans to study creation and propagation of oscillations on a model for the evolution of phase transitions (with a viscoelastic damping term), by considering solutions generated by a convergent sequence of initial data. Fonseca, Lin, Rogers and the PI intend to prove the convergence of a numerical scheme for solving a nonlocal variational problem modelling one-dimensional mechanical phase transitions. Ma and the PI plan to clarify (numerically first) the full picture for a nonlocal model for ferromagnetic materials with (nonlocal) exchange energies that yield hysteresis. The PI and Rogers are currently examining the stationary points of the James/Kinderlehrer Terfanol model using a symbolic manipulator. The goal of this work is to aid in the technical knowhow for shape memory alloys. The aim of the first project is to help in the attempts to model the evolution of phase transitions in these materials. There are a lot of problems in obtaining numerical data for phase transitions, the hope in the second project is to help in solving some of those problems.(The data already obtained is very promising.) The work with Ma is intended to aid in constructing models that can predict the behaviour of ferromagnetic materials. Finally, Rogers and the PI hope to gain further insight into the aforementioned model for Terfanol and for magnetostrictive materials in general.